CAREER: Mechano-Responsive Biomaterials with Controlled Architectures and Improved Mechanical Properties via Biomimetic Strategies

This Career award to University of Delaware is funded by the Biomaterials program in the Division of Materials Research. With this project, the PI will develop biomaterials that closely resemble the structural organizations and multi-scale responsiveness of the natural extracellular matrices, but with controlled architectures and improved mechanical properties. Main focus of the proposed study will be: 1) design of mechano-responsive hydrogels by covalent cross-linking of polyethylene glycol with nanoparticles exhibiting sacrificial bonds and hidden length on their surfaces to mimic the modular domain structures present in functional proteins; 2) synthesis of mechano-responsive elastomers by recapitulating the molecular architecture of natural elastin whereby the hydrophobic domain of the native elastin is replaced with a synthetic polymer that is capable of elastic recoil, while the hydrophilic domain will be replaced with specific peptide sequences with potential structural directing capability; and 3) characterization of mechanical properties of these dynamic and modular biomaterials by microscopic and macroscopic methods. Although smart biomaterials have been designed to respond to external stimuli such as pH, temperature, reagents, electrical or magnetic fields, synthetic polymers with the ability to respond rapidly and reversibly to mechanical stresses over prolonged periods of time in the human body have yet to be developed. Given the fact that most tissues in the body are subjected to mechanical stimuli, and cells within the tissues have sophisticated machinery that actively responds to the mechanical force, it is critical that this form of signaling will be considered in the design of polymeric matrices in this project.

The proposal aims to educate several graduate and undergraduate students in biomaterials and integrates them with PI's research interest in mechano-responsive biomaterials. Developing a new graduate level course in biomedical engineering to teach biomaterials/biomedical concepts to students and stimulate their interest in these areas is also part of this project. The educational component is closely integrated with the proposed research activities with the goals of inspiring high school students to pursue biomaterials/biomedical careers; and providing research opportunities for under-represented minority students with hands-on experiences in biomaterials research. The interdisciplinary nature of the proposed research and education activities will also equip graduate students with up-to-date information, experimental skills, and creative thinking that are all indispensable in the growing field of biomedical engineering. The ultimate goal is to establish research and education programs that will not only advance the field of biomedical engineering by generating biomaterials with unprecedented mechanical properties and responsiveness but also to inspire and educate the next generation of biomedical engineers and scientists.